Mathematical Models of Phase Transitions in Quartz

DMS-9704621 Rogers This grant funds a program of mathematical investigations of the alpha-beta phase transition in quartz. In unstressed quartz this transition occurs at about 574 degrees Centigrade, at which point a quartz crystal undergoes a change in shape, volume, and symmetry. The high temperature beta-phase has larger volume and higher symmetry than the low-temperature alpha-phase. The alpha-beta transition can be accompanied by an interesting triangular microstructure that is quite different from the layered microstructures that are usually found in shape memory alloys and ferromagnetic materials. An interesting mathematical feature of the problem is that the microstructure is describe by the oscillation of a scalar order parameter. Order parameters have been used in many other studies of phase transitions, but they are usually hard to measure and are defined in fairly fuzzy physical terms. On the other hand, the order parameter in quartz is well defined physically and there are good techniques for measuring it. Thus, it provides an excellent test case for mathematical models using order parameters. The proposers plan to use techniques of differential equations, the calculus of variations, scientific computation, and bifurcation theory to study both standard models for quartz and models that they will propose. %%% When a material undergoes a drastic change in its fundamental properties we say it has undergone a "phase transition." The obvious examples are freezing and melting, evaporation and condensation, but more subtle atomic rearrangements are covered by the term as well. Despite the technological importance of such material changes, the mathematical theory describing them is nowhere near as well developed as theory describing the motion, deformation, and thermal properties of materials. This grant funds a program of mathematical investigations of a phase transition in quartz. The transition is caused by changing temperature and occurs at about 574 degrees Centigrade. At this temperature, a quartz crystal undergoes a change in shape, volume, and symmetry. The transition can be accompanied by an interesting microscopic triangular pattern that is quite different from the layered patterns that are usually found in shape memory alloys and ferromagnetic materials. An understanding of these microscopic patterns (called "microstructures") is widely believed to be a key to the understanding of the phase transitions that they accompany. There are a number of reasons for focusing on this particular phase transition. Quartz has a number of important industrial applications such as oscillators and optical waveguides. In addition, the transition in quartz is usually described mathematically by a quantity called an "order parameter." Order parameters have been used in many other types of phase transitions, but they are usually hard to measure and are defined in fairly fuzzy physical terms. On the other hand, the order parameter in quartz is well defined physically and there are good techniques for measuring it. Thus, quartz provides an excellent test case for mathematical models using order parameters. ***